Enabling Strategies for Synthesis of Complex Natural Products

Professor David Sarlah of Rice University will study the chemical preparation of bioactive complex molecules that are found in nature, known as natural products. Natural products play an important role in the development of pharmaceuticals and agrochemicals; however, due to their structural complexity, they are difficult to prepare and modify. By devising novel synthetic pathways and chemical reactions that can access these molecules, the Sarlah laboratory is simplifying and expediting their preparation. These synthetic methods will enable advanced manufacturing of important, high-value-added compounds desirable in medicinal chemistry and agriculture. Moreover, the project is conceptually interesting and has many potential applications, making it well-suited for the education of scientists at all levels, including the research training of undergraduate and graduate students at the forefront of synthesis. This grant will also enable a wide range of science, technology, engineering, and mathematics focused outreach activities. The Sarlah group has been leading an outreach program, Science in Action, that provides crucial hands-on science education in the Houston area.

This project focuses on the development of several strategies for the rapid and controlled construction of different types of complex natural products, including cripowellins-based alkaloids, clerodanes, and cyclophane-containing peptides, many of which have notable biological properties. Specifically, a stereoselective olefination chemistry will be investigated to provide efficient access to the strained [5.3.2] bicyclic system of cripowellins. A unique labdane-to-clerodane skeletal rearrangement will transfer several groups across the decalin motif, opening new pathways between two specific classes of terpenoids. Finally, a regiodivergent transition metal-catalyzed cycloaddition strategy is planned to drive the development of a large class of complex peptides containing cyclophanes. All these strategies could provide rapid, selective access to molecular motifs with applications beyond natural products.